Acquisition of a 400 MHz NMR Spectrometer for Use in Research and Research Training at Seattle University

With support from the Major Research Instrumentation (MRI) Acquisition Program, the Department of Chemistry at Seattle University will acquire a 400 MHz NMR spectrometer. The spectrometer will be used in three departments across a wide range of research areas, including organic synthesis, bioorganic chemistry, physical chemistry, microbiology and material science. It will be used to characterize and study aza-Diels-Alder products, nucleotide mimics, hydroxyalkyl nitrates, antimicrobial agents and high-performance cementitious materials.

Nuclear Magnetic Resonance (NMR) Spectroscopy is the most widely used tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances and to provide information on the arrangement and connectivity of atoms in molecules. Dynamical information is obtained providing insight on the motions of molecules. This award will provide essential analytical capabilities to faculty and students in the departments of Chemistry, Biology, and Civil and Environmental Engineering. Faculty and students at Seattle Central Community College will also use it. It will be used in undergraduate laboratory courses at both institutions.